Application of Statistical Physics Concepts and Methods to the Study of Science & Technology Systems

This proposal for funding the third and final year of a three-year project, will apply statistical principles based on physics to identify characteristics of S&T systems. This methodology would be used to identify S&T systems by scale, publications counts by country, and publication output by university departments.